Field Instrumentation for Undergraduate Education in Environmental and Engineering Geophysics

As part of the department's effort to build an integrated undergraduate earth science education program, this project is developing an environmental engineering geophysics field program. This field program provides students in four different departments at this institution and students at Biosphere 2, in Arizona, with multidisciplinary, inquiry-oriented, field-based geophysical experiences. These experiences address local and regional environmental, engineering, and geological problems. This program and the curricular materials developed in it are being made available to other earth science departments as a model. The university is purchasing two conductivity meters (for shallow and medium depth applications), a magnetometer/gradiometer, a seismic reflection/refraction system, and two generic Windows/Linux field laptops with basic visualization software for in-field data analysis and preliminary processing. This equipment completes the instrumentation pool for the geophysics field classes. *